Local and Global Behavior of Solutions of Schrodinger Equations

DMS-9970638
ABSTRACT

The proposed project will focus on the analysis
of the properties of solutions for linear and nonlinear
Schroedinger equations. The principal investigator will
continue his study of the regularity properties of fundamental solutions
of time-depndent Schroedinger equations on noncompact and
compact manifolds. Special attention will be paid to the
construction and analysis of global in time representations
of fundamental solutions and their approximations. Also,
the influence of trapped geodesics on the fractal properties
of the fundamental solutions will be studied. The
principal investigator will study the basic questions of
existence, multiplicity and regularity of Schroedinger
maps.

The Schroedinger equation is of fundamental importance
for quantum physics and modern science and technology
in general. Understanding the mathematical properties of
solutions to Schroedinger equations corresponding to different
quantum systems helps one understand natural phenomena
and to advance technology. Fundamental science also encourages
the quest for new, more sophisticated mathematical models.
The equation for Schroedinger maps is a natural generalization
of the familiar Schroedinger equation to a nonlinear enviroment.
The study of Schroedinger maps is just beginning.
We hope that it will inspire many new exciting results
in theory and applications.